Transferable Latent Space Simulators: Generative Emulators of Protein Dynamics

Andrew Ferguson of the University of Chicago is supported to develop new artificial intelligence methods to predict how proteins move and change shape over time. Proteins are the molecular machines that carry out nearly every process in living organisms, and their functions often depend not only on their structures but also on their motions. Molecular dynamics is the leading computational approach for modeling protein dynamics, but its high computational cost limits its ability to capture many important biological processes. While recent artificial intelligence breakthroughs have made it possible to predict protein structures from amino acid sequence, predicting protein dynamics from sequence remains an important open challenge. Ferguson and his research group will combine statistical physics theory and deep learning with databases of molecular simulation trajectories to create efficient emulators of protein motion. These models will learn the fundamental patterns that govern protein dynamics and use that knowledge to predict the behavior of new proteins and engineered variants at a fraction of the computational cost and many times the speed of traditional simulations. The resulting tools will reveal how changes in protein sequence influence molecular motion, providing new insight into biological processes such as molecular recognition, cell signaling, and enzyme catalysis. By enabling rapid prediction of protein dynamics, this work will accelerate the design of new medicines, biotechnologies, and manufacturing processes while also advancing fundamental understanding of protein behavior. The research team will release these tools as open-source software, provide research and training opportunities for high school, community college, and undergraduate students.

Andrew Ferguson of the University of Chicago will develop transferable latent space simulators (tLSS) that combine statistical mechanical theory, specialized deep learning architectures, and large molecular dynamics databases to establish scalable, sequence-aware emulators of protein dynamics. Recent machine learning advances have enabled accurate prediction of protein stable structures and metastable conformational landscapes from sequence, but accurate, transferable, and efficient prediction of protein dynamics from sequence remains an open challenge. The central hypothesis of this award is that transferable dynamical subspaces containing the dominant collective motions of proteins, together with sequence-aware propagators that govern their evolution, can be learned from molecular dynamics training data. Ferguson will establish the theoretical and algorithmic foundations of tLSS through a three-stage framework that will encode protein dynamics across sequence space into a shared latent dynamical subspace, learn sequence-dependent propagators that efficiently emulate long-timescale dynamics within this subspace, and decode latent trajectories back into molecular coordinates. The resulting models of the protein sequence-dynamics relationship will advance fundamental understanding of protein biophysics and provide an enabling tool to efficiently explore protein sequence space, predict dynamical behavior, and engineer desired functional motions into synthetic proteins with broad applications in molecular recognition, signaling, and catalysis. The models will be computationally and experimentally validated through the engineering of sequence-dependent dynamical behaviors in chorismate mutase and CotA laccase enzymes. To magnify impact and enable broad community adoption, the tLSS framework will be made broadly available as a user-friendly, open-source Python package. To promote STEM career pathways and workforce development, Ferguson will provide research opportunities for local high school students, offer research placements for undergraduate students, and serve as an instructor for a three-week molecular engineering workshop for students.